Mathematical Sciences: Moduli of Vector Bundles and other Problems in Algebraic Geometry

This award supports the research in algebraic geometry of Professor Ron Donagi of the University of Pennsylvania. Dr. Donagi's project is concerned mostly with the moduli of vector bundles on a curve, but he will also spend time investigating algebraically completely integrable systems and the Schottky problem. Algebraic geometry is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics.